Hodge Theory, Dualities and Non-Commutative Geometry

This is a research in the field of algebraic geometry - a classical
subject studying the solutions to systems of polynomial equations. The
current project addresses four problems providing exciting interfaces
between complex geometry and string theory and quantum physics. The
first problem aims to build a toolbox of Hodge theoretic techniques for
computing invariants of complex projective varieties related to higher
homotopy. The second explores the limits of the classical Shafarevich
uniformization conjecture in complex geometry. The third problem
proposes an explicit construction of sheaves on a gerby Calabi-Yau
manifold which is fibered by K3 surfaces, and studies its impact on the
physical notion of non-commutative deformation of fields. The fourth
project probes the relationship between the extremal transitions in
degenerating families of Calabi-Yau manifolds, the limiting behavior of
integrable systems, and non-commutative algebraic geometry.

The understanding of these questions is essential for unifying various
linearization procedures in algebraic geometry, symplectic topology,
theoretical and mathematical physics. The project sets the stage for
understanding the basic structure of algebraic varieties in a way
suitable for pragmatic use in a broad spectrum of applications. The
work proposed will be immediately relevant to deep questions in
category theory, combinatorial group theory, the theory of integrable
systems, string theory, quantum gravity and cosmology. The project
proposes concrete interdisciplinary applications to matrix quantum
mechanics, string dualities and particle physics model building.